Workshop: Student Travel Support to the 2009 IEEE MTT-S International Microwave Symposium. To be Held in Boston, MA on June 8-12, 2009.

The objective of this activity is to provide partial travel support for six students from U.S. universities to attend the 2009 IEEE MTT-S International Microwave Symposium (IMS). The IMS is the annual meeting of the Microwave Theory and Techniques Society (MTT-S) of the Institute of Electrical and Electronics Engineers, Inc. (IEEE). The IMS is also the major international symposium in the microwave field and a focus of research results in wireless telecommunications. The 2009 IMS will be held in Boston, MA, USA on June 8-12, 2009.

Intellectual Merit: The main impact is primarily educational, as the travel support allow students' participation in IMS 2009. This participation is an important part of the education process. It provides students with the opportunity to interact with more experienced researchers, and to be exposed to new areas of research.

Broader Impact: Student participation at the IMS not only promotes education but also fosters the next generation of microwave engineers.